Application of ab initio Molecular Orbital (MO) Methods of Computational Chemistry to the Study of Electron Transport in Quantum Dot Arrays

The techniques of computational chemistry have found wide interdisciplinary application in fields as diverse as polymer science and solid state theory. The purpose of this preliminary study is to adapt the methodology of Quantum Chemistry to investigate electronic properties of zero- dimensional quantum well (quantum dot) array structures.